Research in dynamics

Burns will be continuing his studies of partially hyperbolic dynamical
systems. This area has seen great progress in the last decade after the
breakthrough work of Pugh and Shub, who established ergodicity for volume
preserving perturbations of the time one map of the geodesic flow of a
surface of constant negative curvature. A series of papers, culminating in
recent work of Burns and Wilkinson, has established ergodicity for a very
general class of volume preserving partially hyperbolic systems. This work
appears to have pushed current techniques to their limit, but still falls
short of a complete understanding of when volume preserving partially
hyperbolic systems are ergodic; new ideas are needed. Burns will continue
to study this question as well as various special examples of partially
hyperbolic dynamical systems, in particular compact group extensions of
hyperbolic basic sets. He will also consider geometrical questions about
the geodesic which are closely related to the work on partial
hyperbolicity.

Partially hyperbolic dynamical systems are important because they model
phenomena which occur in nature and because, at least in some examples, it
is possible to completely understand the mechanisms which create the
observed phenomena. Partial hyperbolicity is to be expected in systems
which have a fast-slow dynamics in which one aspect of the systems
operates on a short time scale and other aspects operate on a longer time
scale. There is now a good understanding of how partial hyperbolicity
gives rise to highly chaotic behaviour in many situations.